The Northeast Analysis Network

This award provides funding to help defray the expenses of participants in two meetings of the "Northeast Analysis Network," the first of which will be held September 23-24, 2016, on the campus of the University of Rochester and the second of which will be held September 22-23, 2017, on the campus of Syracuse University.

The Northeast Analysis Network (NAN) will bring together once a year, for the coming two years, the analysis communities in the state of New York and neighboring states. The University of Rochester and Syracuse University will each host one conference (Rochester: NAN 2016; Syracuse: NAN 2017). Each conference will primarily feature talks by senior post-docs and finishing graduate students who are about to enter the job market. A magnet lectures by a leading researcher, the "Excelsior Lecture" (named after the motto of the state of New York) will serve as a catalyst for each conference. The Excelsior Lecturers are Jill Pipher (NAN 2017) and Svitlana Mayboroda (NAN 2017).